Industry/University Cooperative Research Activity: An Investigation of Mechanisms for Microbially Assisted Corrosion

This research seeks to elucidate the mechanisms and ameliorate the effects of microbially-assisted corrosion in process environments. Hypothesized microbially-assisted corrosion mechanisms will be investigated in well-defined laboratory experiments, capable of isolating each mechanism under controlled environmental conditions. Real time corrosion measurements, as well as surface analytical techniques, will be used to assess the effects on the metal surface. Microbial process engineering methods will establish the relationship of microbial activity to corrosion rate and stoichiometry.